STEP Phase 1: Recruitment, Retention, and Success in Science

Recruitment, Retention, and Success in Science (R2S2) provides access to science, engineering technology, and mathematics (STEM) degrees for the predominantly Hispanic population of the Coastal Bend region served by Texas A&M University-Corpus Christi (TAMUCC). The goal of R2S2 is to increase the quality, quantity, and diversity of students pursuing and obtaining degrees in science, engineering technology, and mathematics at TAMUCC. R2S2 targets all STEM programs in the TAMUCC College of Science and Technology. R2S2 promotes teaching, training, and learning by creating greater linkages in the teaching of science and mathematics courses with a concomitant emphasis on writing and communications skills, and an enhanced mentoring component involving professional development for faculty and peer mentors.

R2S2 has two major objectives: (1) to increase the retention of STEM majors at TAMUCC and (2) to increase the number of STEM majors by recruiting from TAMUCC undeclared majors. Strategies to accomplish these objectives include:

a. Improving the existing first-year learning communities' infrastructure for science majors, adding mathematics and extending the learning communities to the sophomore level.

b. Developing a peer-mentoring program for the first-year science and technology learning communities.

c. Implementing a recruiting program that targets entering first-year students who have not declared a major.